Low Noise Coupling and Signal Detection for EPR Spectroscopy

The application of promising new resonant structures and modern microwave technology to EPR studies of problems in materials science, chemistry, physics, biology, and medicine, is limited by the lack of engineering design data. The PI's propose to test the quantitative predictions of our theoretical results for inductive coupling, parallel capacitive coupling, and series capacitive coupling. Sensitivity of coupling to dimensional and electrical parameters will be explored. The best designs will be implemented for CW and pulsed S-band and X- band spectrometers. Primary focus will be on ease of sample change, returning, and variable temperature operation for samples contained in standard cylindrical tubes and in solvents of various dielectric constants. A variety of equipment will be built: A hybrid microwave EPR bridge that will be more sensitive and cost-effective than present bridges. An electronically tunable LGR for S-band operation that will improve tunability of the resonator/matching network. A system in which the preamplifier is cooled along with the resonator to take advantage of the low noise possible at cryogenic temperature. Design guidance that will come from the proposed work is urgently needed by many research groups. The results will enhance the competitiveness of American spectroscopic measurements.